StarEmbed: Building a Foundational Data Infrastructure for Model Evaluation and Development in Time-Domain Astrophysics

Wide-field time-domain surveys such as the Legacy Survey of Space and Time (LSST) conducted by the Vera C. Rubin Observatory are monitoring the entire visible sky every few nights, producing unprecedented amounts of astronomical data. Next-generation computational tools are needed to efficiently explore and analyze such large data sets, and machine learning (ML) and artificial intelligence (AI) methods are a promising technology for the job. An interdisciplinary team of astronomers and computer scientists from Northwestern University will build StarEmbed, a unified, multi-survey data infrastructure designed to accelerate the detailed development and evaluation of AI models for time-domain astrophysics. The researchers will build a platform to unify heterogeneous light curves of variable stars in an integrated data infrastructure, innovate and develop time-series AI foundation models for analyzing astronomical time-series data, and unify and benchmark the AI models. The team will also start Stellar Sleuths, a people-powered research project that will crowd source the visual inspection of the StarEmbed light curves, which is a critical part of constructing the platform’s scalable classification infrastructure. This research award is partially funded by a generous gift from Charles Simonyi to the U.S. NSF Directorate for Mathematical and Physical Sciences Section of Astronomical Sciences. The project includes significant contributions to Vera C. Rubin Observatory’s Legacy Survey of Space and Time.

Significant advances in foundational AI (fAI) are measured via benchmarks – large collections of well labeled data with accompanying models that provide state-of-the-art performance on different tasks – and StarEmbed will be the first-ever benchmark for variable star inference. StarEmbed will be an entire ecosystem enabling fundamental fAI questions that extend far beyond the oft-studied problem of “variable star classification”. Adopting a data-centric approach, the team will create a novel data-model-evaluation co-development framework that will allow StarEmbed to probe for true scientific insight. Detailed time-series foundation model (TSFM) scaling laws will be measured to produce a rigorous, multi-step process for variable star inference within a fixed computation budget. Fully open source, StarEmbed will allow for “plug and play” reproduction of the team’s results, which will include many TSFMs to allow for fair comparisons with any new models that are developed. The team will produce and release TSFM embeddings for all the variable stars in the Zwicky Transient Facility (ZTF) and LSST data releases 1 and 2 to drive discovery and generate public catalogs containing classifications, anomalies, and physical parameter measurements for variable stars.